POWRE: Program-based Testing of Parallel Programs

EIA-9870370
Pollock, Lori L.
University of Delaware

POWRE/CISE: Program-based Testing of Parallel Programs

The proposed visiting professorship is an opportunity for the PI to advance the career as a researcher and educator in program analysis-based software engineering. In addition to advancing the PI's knowledge and experience in this area, the PI will be in a position to add new courses to the University of Delaware curriculum. From the technical point of view, the goals of the proposal are to design, implement, and evaluate more extensive program-based testing techniques for parallel programs. The objective is to use data flow and trace information and develop novel analysis techniques to automatically generate program-based test and analyze the test coverage of parallel program, respectively. The proposed research is divided into: (i) extension and further development techniques for automatic test path generaton for data flow testing of parallel programs of different programming models (ii) experimental evaluation of the fault detection capability and (iii) investigation of data flow and program slicing approaches.